U.S.- Jordan Cooperative Research: Electrical Studies of Ferroelectric Thin Films

Description: This proposal supports the collaboration of Drs. J.F. Scott and L. Kazmersky of the University of Colorado at Boulder, Dr. R. Bitar, University of Jordan, Amman, Jordan and Dr. A. Shawabkah, Birzeit University, West Bank, Palestine. The purpose of the collaboration is to produce true device equations for ferroelectric film memories. Project funding will help support Dr. Bitar during his sabbatical stay at the University of Colorado as well as allow Dr. Scott to travel to Dr. Bitar's home institution. Existing facilities in Jordan are capable of carrying out this research, therefore, when Dr. Bitar returns to Jordan, studies can continue. Scope: The proposed collaboration will bring together research scientists from the U.S. and Jordan (Dr. Shawabkah is a Jordanian citizen as well as Dr. Bitar) working in the area of ferroelectric thin films. It is anticipated that this collaborative research will result in the development of ferroelectric thin film memories. Dr. Bitar will have an opportunity to familiarize himself with the techniques utilized by the team at the University of Colorado and then transfer this technology to facilities at his home institution. Therefore, this proposal fulfils objectives of the Science in Developing Countries Program in its exchange and transfer of scientific knowledge through an international collaboration.